NSF Young Investigator

9457260 Roberts This is an award to support research through a National Science Foundation Young Investigator Award to be performed by the Principal Investigator who was nominated and selected through procedures contained in NSF 93-148, Young Investigator Awards FY 1994 Program. This investigator's research plan involves work on the interactions of trace metal ions with inorganic ligands. These have important ramifications with respect to the manner by which metals exert their toxic effects such as influencing the mechanisms that are involved in formation of toxic methylated metal species by sulfate-reducing bacteria. This work involves development of techniques for investigating the mechanisms of electron transfer in reductive dehalogenation reactions of polyhalogenated alkanes. The treatment of contaminated soils and aquifers by stimulating abiotic or microbial reduction can result in byproducts that are relatively persistent and toxic as well as others that are readily biodegraded. Results of this research may be applied in engineering design of systems for remediation of contaminated soil and aquifers to avoid the formation of byproducts that are relatively persistent and toxic.